Plasma-Based Ultrafine Particle Synthesis

9312986 Berndt A plasma spray apparatus with an axial feed torch will e developed, and the production of nanoparticle and nanostructures from colloids and powders will be investigated. A mass spectrometer will be used to analyze on line gas composition and particle size distribution, as well as to form nanostructured thin layers. The project objectives include basic understanding of the interactions of colloids and powders with high temperature plasma gases, and the optimization of a scalable plasma torch manufacturing process to produce ultrafine particles and particle-based solid structures. This interdisciplinary project is well supported by industry and the host university. Main outcomes will be improving plasma torch processing, developing specific instrumentation, and proposing suitable models for the corresponding physical and chemical processes. The work is relevant to plasma spray development, ultrafine particle generation at high production rates, and nanostructured coating. ***